Conference on Human-Centered Approaches to Artificial Intelligence Literacy in Informal Learning

The New York Hall of Science (NYSCI) will convene a two-day participatory design conference of to identify research and education opportunities in informal settings for supporting literacy concerning Artificial Intelligence (AI), especially for diverse and underserved youth whose communities are impacted by the bias in some AI processes. AI uses computer systems that simulate human intelligence. AI systems impact nearly every aspect of daily living, performing tasks underlying navigation apps, facial recognition, e-payments, and social media. AI can perpetuate inequities and biased outcomes in the culture at large. The conference will explore how to promote engagement and conceptual learning among youth about how AI works and what skills are needed to critically use and apply AI. The conference will also explore ways to support the interests of diverse and underserved children and youth in shaping AI and joining the growing STEM workforce that will use AI in their professions.

The conference will identify key features and needs with respect to AI literacy and explore the specific roles that informal learning can play in advancing AI literacy for youth in diverse and underserved communities. Participants in the conference will include designers, learning scientists, researchers, informal and formal educators, and science center professionals. Attendees will work in separate teams and as a group to explore and critique existing AI tools and learning frameworks, discuss lessons learned from promising AI literacy programs, and identify design principles and future directions for research. Specific attention will be paid to informal mechanisms of engagement, promising networks, and research-practice partnerships that take advantage of the unique affordances of informal learning and community services to accelerate AI literacy for historically excluded youth. The insights gained from this work will result in a set of research and programmatic priorities for informal institutions to promote AI literacy in culturally responsive ways. The resulting published guide and community events will broadly disseminate priorities and design principles generated by this convening to help informal learning institutions and community learning organizations identify both assets and priorities for addressing diversity, equity, access, and inclusion issues related to AI literacy.

This research project is funded by the Advancing Informal STEM Learning (AISL) program, which seeks to (a) advance new approaches to and evidence-based understanding of the design and development of STEM learning in informal environments; (b) provide multiple pathways for broadening access to and engagement in STEM learning experiences; (c) advance innovative research on and assessment of STEM learning in informal environments; and (d) engage the public of all ages in learning STEM in informal environments.